Equipment for Mechanical Analysis of Growth Plate Cartilage

The purpose of this fundamental bioengineering research is to produce a mechanical engineering model of the growth of cartilage. Such a model is important and necessary in the investigation of the growth plate cartilage. The PI will conduct a research program of experimental and theoretical investigations designed to illuminate the growth dynamics of the cartilage of the leg. Information from such studies could have a profound affect upon clinical treatment of dwarfism and leg length deformities in children.